Characterization of Cis- and Trans-acting Factors RegulatingRoot-Specific Gene Expression

This is a proposal to study the regulation of organ-specific gene expression in plants. The mechanisms are most easily conceptualized as trans-acting factors that interact with some cis-acting sequence determinants. In this proposal we detail experiments designed to molecularly clone and characterize both cis-acting and trans-acting factors responsible for organ-specific gene expression in tobacco. Sytems allowing the in vitro purification and manipulation of genes and their subsequent reintroduction into cells are required. the totipotency of plants and existence of efficient transformation systems make plants excellent model systems for such studies. Tobacco genomic clones that have been isolated are expressed at high levels specifically in either leaves or roots. Putative regulatory regions from these genes will be fused to a reporter gene and these constructions transformed into tobaco cells via Agrobacterium-mediated vectors. After plant regeneration, the organ-specific expression of the reporter gene will be determined. Some of the regulatory regions are likely to confer organ-specific gene expression and will be further analyzed. A generalized cloning strategy will be developed that allows the isolation of cDNA clones encoding proteins that bind particular DNA sequences. A system in which the precise limits of the DNA binding sequence need not be known has been sought. In fact, regions of several hundred base pairs may be used. The selection system exploits an observation that the binding of a protein between an Upstream Activating Sequence (UAS) and the GAL1 gene of yeast interrupts GAL1 expression. With this system cDNA libraries may be screened for specific trans-acting factors. This system may be used in concert with defined cis-acting sequences to identify and characterize trans-acting factors responsible for organ-specific gene expression. Although all cells of an organism contain the same DNA, it is clear that genes are expressed selectively in different cells. Some situations have been defined that implicate specific DNA regions, named enhancers, and specific factors which interact with those enhancer regions as controlling regions and factors for such differential expression. However, the development of a system as described above could vastly increase the rate of obtaining such information.